The Challenge of Interdisciplinary Education: Math-Bio

Developers and researchers at Rutgers University, Boston University, Colorado State University, and the Consortium for Mathematics and Its Applications (COMAP) are continuing research and development work on high school instructional materials that integrate biology, computing, and mathematics. The project goal is to develop and test a one-semester high school course. The course consists of some modules developed under a previous NSF grant as well as some new material.

COMAP leads the effort to develop the instructional materials and the process involves mathematicians, biologists, computer scientists, teachers, and writers. The materials are pilot- and field-tested in a number of schools and revised after each test. Subject matter experts review the materials for accuracy and teachers and education professionals review them for their usability. Researchers at Colorado State University collect and analyze data on student learning and interest at all stages of the pilot- and field-testing.

The intended deliverables include up to five new instructional modules and a coherent one-semester course suitable for the increasing state requirements for a fourth year of mathematics. The course is supported by a book in print and electronic format and includes teacher training support tools and activities to prepare teachers to present interdisciplinary bio-mathematics material.